The SUCCEED Apprenticeship Program

"The SUCCEED Apprenticeship Program" targets rising 9th grade students in Durham, NC and the Research Triangle communities of Durham and Orange Counties. This program will provide an intensive, multi-year experience for 100 students over a three-year period. Students will be recruited and trained to participate in computational science projects in computer modeling and simulation. Research teams of ten apprentices and one mentor will meet two hours per week during the school year and eight weeks in the summer. Students will contribute to four hands-on projects: the National Digital Science Library (metadata tagging and web design), SUCCEED (website design and web applications), Digital Durham (postcard database), and Sigma Xi (web support). Students are recruited from the existing enrichment programs or nominated by teachers. Partners include Sigma Xi international engineering honor society and the Digital Durham Project. Participants will receive an impressive 780 contact hours during two years of participation.